Mathematical Sciences: Workshop-Conference in Ordered Algebraic Structures

This conference will be held at the University of the Netherlands Antilles, August 8-13, 1988. It is meant to inaugurate a fresh mathematical collaboration between the University of Florida and the University of the Netherlands Antilles, which in the long run will become a key component of a more general scientific exchange between the U.S. and the Caribbean basin. Also, the conference represents an opportunity to place ordered algebraic structures in an international forum, providing an opportunity for those in the mathematically underdeveloped Caribbean region to come into contact with an international array of outstanding mathematicians. Attendance is expected from a number of younger researchers from that area, and participant support is available. Ordered algebra is an important component in the development of mathematics, drawing from algebra, analysis, and topology, but also replete with techniques of its own. It is enjoying a period of renewed interest and growth, making the subject a timely one for a conference. The organizer of this conference is Professor Jorge Martinez of the Mathematics Department of the University of Florida.